Invariant point processes, fair allocations, random-turn games and applications

This proposal describes problems in several areas of probability,
involving stochastic geometry, Markov chains, and stochastic games.
Determinantal point processes arise naturally in several settings,
including eigenvalues of random matrices. One goal of the proposal is
to develop robust methods to recognize determinantal processes that do
not require calculating correlation functions of all orders. Two
methods of allocating equal volumes to the points of a point process,
one based on the Gale-Shapley stable matching algorithm, the other on
gravitational potentials, will be compared. In the area of Markov
chain mixing, the ``cutoff phenomenon'' where distance to stationarity
decreases rapidly from near 1 to near zero is believed to hold in most
natural chains but is established for very few. A robust and easily
checkable possible criterion for cutoff will be investigated.
Recently, the classical connection between random walks and harmonic
functions has been extended to nonlinear potential theory using ideas
from game theory and optimal control. A major aim of the proposal is to
develop and study stochastic games whose value functions, in the
scaling limit, solve other important PDE.

Random scatters (Point processes) that exhibit clumping have effective
models in statistics, but random scatters that exhibit repulsion are
less well understood. The proposed project aims to develop a better
understanding of such processes which should enable wider use for them
in statistical modeling. Given a random scatter, different algorithms
for allocating equal areas to the points of the scatter will be
investigated. Markov chains are a widely used tool in simulation and
randomized algorithms. Basic features of convergence to equilibrium
in these chains will be studied. These should have an impact on the
analysis of algorithms. The project has a substantial educational
component, in mentoring of graduate students and preparation of
educational materials at the undergraduate level on Markov chains and
game theory.